The Trade Effects of Antidumping Investigations

9311703 Staiger With the use and abuse of antidumping law now a central concern of both multilateral and bilateral trade negotiations, it is especially important to gain as full an understanding as possible of the impact of existing antidumping laws on the free flow of trade. In this project, the determinants and the effects of antidumping investigations in the United States over the period 1980-1985 are examined. Rather than focusing primarily on antidumping duties alone, this research considers antidumping law more broadly, paying particular attention to the on-going investigation effects of antidumping procedures on imports and domestic output, and to whether such effects could be sufficiently important to encourage filing of petitions that, absent these effects, would not be worth pursuing. The project includes these broader aspects of antidumping law in an effort both to assess more accurately the determinants and the effects of antidumping petitions as well as to evaluate several hypotheses suggested by recent theoretical work on antidumping law. A novel aspect of this research will be to disentangle the effects on imports and domestic output of the various phases of the antidumping investigation process along the lines suggested by recent economic theory. ***